Modeling High Viscosity Melt-Phase Polycondensation ReactorsUsing Direct Inclusion of Experimental Mixing Data

Condensation polymerization in a melt-phase process is used to manufacture, for example, thermoplastic polyesters (polyethylene terephthalate) and polyamides. These polymers are used in packaging (beverage bottles), fibers, films, and adhesives. The manufacturing process requires continuous removal of the condensation product from the reaction mass to drive such reversible reactions to high conversion. Typical polycondensation reactor configurations include twin screw and multiple screw extruders, twin shaft paddle mixers, horizontal disc-ring reactors and stirred tanks with an anchorage agitator. The primary objective of this research project is to gain a fundamental understanding of the reaction kinetics, mixing, and mass transfer which occur in the manufacture of high viscosity condensation polymers using melt-phase processes. Current design procedures are empirical and inadequate for the increasingly higher viscosity polymers being manufactured today. Another factor is that present commercialization pressures involve shorter and shorter product development times. This research program will consist of three components. Experimental mixing data will be generated for a disc-ring reactor. This data along with reaction rate and diffusion parameters will be incorporated into a mathematical framework which is capable of predicting the overall reaction rate in a polycondensation reaction system. Finally, the model will be partially validated by comparing it against experimental devolatilization rate data.